CAREER: Coding for Wireless Communications

Abstract:
---------
The demand for voice and data transmission over wireless channels is
increasing at a tremendous pace. Unfortunately, the characteristics of
the wireless channel (e.g., fading and interference) impose obstacles
for satisfying this demand. The single most effective technique to
accomplish reliable communication over a fading channel is ``diversity''
which attempts to provide the receiver with independently faded copies
of the transmitted signal. Channel coding may also be used to provide
(a form of time) diversity for immunization against the impairments
of the wireless channel. In addition, various diversity techniques may
be combined to further improve the system performance in a wireless
environment. Space-time coding which combines channel coding with space
diversity is a recent example of combining different diversity techniques
and has proven to be effective in providing high data rates over fading
channels.

This research involves development of new channel coding techniques
for the wireless link. In particular, coded modulation techniques for
multiple transmit and multiple receive antenna systems over block
fading channels are developed. A significant part of the research includes
development of turbo (based) coded modulation techniques as an alternative
to the current space-time codes. In addition, the investigators study the
use of multilevel codes and bit interleaved coded modulation schemes for
systems with antenna diversity. They conduct a theoretical performance
analysis of various coded modulation systems, develop code design
principles, and devise simpler and efficient decoding algorithms. In
addition, they consider practical issues including the evaluation of code
performance in the presence of interference.